Collaborative Research Proposal for Industry/University Cooperative Research Center for Lasers and Plasmas for Advanced Manufacturing

This action funds Southern Methodist University to become a research site of the multi-university Industry/University Cooperative Research Center for Lasers and Plasmas for Advanced Manufacturing. The research agenda of this site will broaden the research agenda by studies in Laser Micro-machining, Laser Welding, Laser Surface Modification, Laser Crystallization of Silicon on Glass, Plasma Surface Modification and Nanostructures and Laser Applications.